Research in Elementary Particle Physics

Research in theoretical elementary particle physics will be aimed at furthering our understanding of the basic forces and laws of nature. It will include work on the "standard model" of particle interactions, which describes the strong, weak and electromagnetic interactions, and on string theory, which is currently the most successful attempt to include the force of gravity with the other forces in a unified framework.
While the standard model has been very successful it leaves important questions unanswered. The details of quark confinement within nucleons by the strong interactions are not understood. Work planned for this project should lead to an improved understanding of the strong force and quark confinement. The masses of fundamental particles in the standard model are also not understood and will be an active direction of inquiry through ideas related to the heavy top quark and string theory.
String theory as a unified theory of all forces has many facets which will be explored in this project. These include applications to black hole physics, to the structure of quantum gravity, to the structure of generalized electric-magnetic dualities, and also to various areas of mathematics related to geometry.